Mathematical Sciences: NSF Young Investigator

9509768 Kriz This NSF Young Investigator Award will provide partial support for Igor Kriz's research on homotopy groups and generalized cohomology theories and on homotopical commutative algebra. The work involves both theory and computation of importance to the foundations of algebraic topology. ***